q-Special Functions

Proposal Number: DMS-0203282
PI: Dennis Stanton

ABSTRACT

Several topics in q-analysis will be studied. A family
of generalizations of the Gaussian integral is
considered which has several q's. These integrals are
closely related to the Rogers-Ramanujan identities, and
new results are found which are motivated by the integrals.
An investigation of the root system version of the integrals
will be undertaken. Some new classical q-orthogonal
polynomials, q-Taylor series and combinatorial enumeration
problems will also be considered.

One of the simplest types of functions is a polynomial.
More complicated functions such as sine, cosine,
or exponentials can be approximated accurately using polynomials.
The general theorem in calculus which allows such results is
called Taylor's theorem, and it is used in applications
throughout science. One of the objects of study in this proposal
is a generalized approximation result, a q-Taylor theorem.
It can be applied to functions currently under study in
mathematics and statistical physics. Several related integrals,
derivatives, and polynomials are also studied.